Conference: Mathematics of Many-Body Entanglement, Isaac Newton Institute, Cambridge, UK

The project will provide travel and subsistence support for American and US based mathematical scientists at all career stages to enable them to participate in the program on Mathematics of Many-Body Entanglement that will take place at the Isaac Newton Institute for Mathematical Sciences, Cambridge, UK, September 1 - December 18, 2026. The program includes three workshops and one school with each up to 100 participants, with workshops on `Dynamics of Entanglement’ (September 1-4, 2026), on `Structure of entanglement’ (November 2-6, 2026), and on `Complexity of entanglement’, December 14-18, 2026. A School on Tensor Networks, will take place October 26-30, 2026. In addition, on November 11, 2026, the Isaac Newton Institute will host an event about how to create a startup in the quantum science and technology sphere. Facilitating the participation of US quantum science researchers in this top level program will help grow and strengthen the US workforce in quantum information science and increase the involvement of mathematical scientists. It will do so by sharing the newest insights and most promising research directions among participants and by building new relationships internationally. Such interactions are essential for the country’s competitive edge in quantum science and technology.

Understanding and controlling quantum entanglement in many-body states sits at the core of quantum information science and key to its applications. This is a formidable problem both from the mathematical as well as the engineering point of view. This program has its major focus on the mathematics underlying quantum entanglement which draws from a broad swath of areas, including Tensor Networks, Geometric Invariant Theory, Operator Algebras, Complexity Theory, Statistical Mechanics, Quantum Field Theory, Random Matrix Theory, Commutative Algebra, Functional Inequalities, Fusion Categories and Hopf Algebras. The program will create exciting opportunities to develop new mathematics as well as the potential to create new interconnections between different areas of mathematics related to this application domain. The website for the overarching program is https://www.newton.ac.uk/event/mmb/. That page also contains links to further information about the three individual workshops, the school, and the startup event about entrepreneurship in quantum information science and engineering.